Young Children's Explorations of Chance and Probability

The goal of the proposed Research Planning Grant is to structure a substantial three-year program of research on young children's learning of chance and probability. I propose to focus on chance and probability because of the richness of the ideas themselves, the connections that chance and probability make possible between mathematics and science, and the powerful vision of mathematics that such a focus could convey to young children. The research program investigates primary grade children's explorations of chance and probability from the perspective of collaborative problem solving instruction. It also examines the effects of learning these concepts in different situations, because of the growing recognition of the influence of context on knowledge-construction. Activities of the Research Planning Grant include completion of literature reviews, refinement and extension of instructional interventions, implementation of two pilot research cycles, drafting of a theoretical framework to capture the multiple aspects of children's conceptual development in this domain and their effect on problem solving, and the preparation of the full grant proposal. The first pilot research cycle focuses on pairs of second graders engaged in a series of chance and probability tasks, involving prediction, empirical investigation, extrapolations and explanation. The second pilot cycle extends the research to small group learning and also begins to explore the entailments of different situations for children's understanding of chance and probability. All sessions are videotaped to enable microanalysis of children's thinking and the effectiveness of the activity sequence. The research aims to construct and refine powerful models of problem solving instruction in the domain of chance and probability, as it uses these as a vehicle to closely examine young children's knowledge- construction.